Visual Programming Labs for Teaching Computer Science Concepts to Undergraduates

9345708 Williams Both the ACM Task Force on the Core of Computer Science and the NSF Disciplinary Workshops on Undergraduate Education recommend scheduled, structured laboratory sessions for undergraduates studying computer science. In our experience, students can make little progress during a lab session when they are working in a traditional programming language. Therefore, we are creating lab software and manuals for a series of "visual labs" in which students use a visual programming environment instead of a traditional programming language. They create and test models (of a CPU, a robot's sensor configuration, a finite state machine , a database query, or a genetic algorithm, for example), rather that write code. Each set of labs is based on one knowledge area from the Task Force curriculum. We have previously created labs for computer architecture, programming languages, and robotics. We are now creating labs for database and information retrieval and for two other knowledge areas (tentatively artificial intelligence and software methodology and engineering). Each set of labs is created by: defining pedagogical goals; designing user interaction; developing specifications and designs for the software; implementing the software in the C programming language and in the EYES visual programming toolkit; writing and desktop publishing a manual; conducting user tests of the software and manual; and revising the software and manual based on the results of the user tests. The software and manuals are then used in class. Our previous studies revealed that visual labs improve student performance, compared to no lab at all. We are currently conducting formal studies to compare visual labs to traditional programming labs that cover the same concepts. We are using an experimental design developed in conjunction with the university's human subjects committee. These studies will reveal whether visual labs are a useful adjunct to the undergraduate computer scie nce laboratory curriculum and will yield information about the usefulness of visual programming for instruction. Results will be published in journal and conference papers. The lab software and manuals are available for distribution to other interested colleges and universities.